MRI/RUI - Acquisition of a Portable Large Scale Visualization System for Nondestructive Evaluation

0216348
Mandayam

This project seeks support for the acquisition of a portable, large-scale visualization system in order to improve the state-of-the art in nondestructive evaluation (NDE) processes. In particular, the project will employ virtual reality technology for:

(a) Defect characterization of NDE signals
(b) Virtual prototyping of NDE systems.

The project involves a collaborative effort among the following constituencies:

(a) Faculty and technicians
(b) Undergraduate and graduate students
(c) Industrial affiliates

The focus of the project is to create procedures for rapid deployment of VR
technology in the NDE industry. This research project supports and enhances existing collaborative research activity at Rowan University's NDE laboratory and a local NDE research & development company.